ENGINEERING RESEARCH EQUIPMENT: Acquisition of a Pulsed Wavemeter for Advanced Laser Diagnostic Measurements

This proposal is for funds to purchase Gas Chromatography/Mass Spectrometry (GC/MS) equipment which will be used to upgrade the analytical system of an existing high temperature reactor facility. The equipment will be used to help identify and measure the concentrations of the products produced in the incineration and thermal destruction of wastes containing chlorofluorocarbons.